Riverscope Workshop: Large Scale Engineering Assessment Network For Environmental Research on the Hudson River

0332166 Sanderson Two workshops are proposed to develop a detailed and structured plan for the organization, implementation, and conduct of a RiverScope EFF under the CLEANER initiative. The workshop process will address four major themes of the program: (1). scientific programs, (2). enabling technologies, (3). organization, partnerships, and consortia, and (4). education, outreach, and policy. The workshop series will be organized by a multi-disciplinary and multi-institutional team that includes both engineering and science faculty, the Darrin Fresh Water Institute of Rensselaer Polytechnic Institute, Lamont-Doherty Earth Observatory, Columbia University, and the Center for Environment and Policy Studies, Pace University.